POWRE: Techniques in Approximation Algorithms and Polyhedral Combinatorics for Problems in Network Design and Routing

EIA-9973858
Fleischer, Lisa K.
Columbia University

POWRE: Techniques in approximation algorithms and polyhedral combinatorics for problem in network design and routing

This grant will provide the PI with an opportunity to spend the fall'99 semester at the Fields Institute of Research in Mathematical Sciences in Toronto, Canada to participate in the special semester devoted to combinatorial optimization. The concentration of the PI's efforts will be in three particular problem areas: (1) development of efficient algorithms for solving problems in network flows, and in particular network flows overtime, (2) development of polynomial-time separation algorithms and approximate separation algorithms for the traveling salesman problem and (3) the network reinforcement problem in network security.